Research Equipment to Measure Solar, Luminous, and Longwave Radiation for Building Research Studies

Equipment including pyranometers, radiometers, sensors, photodiodes, and data recording equipment is acquired for an interdisciplinary study team investigating thermal performance of buildings while examining energy-conserving operation practices. The purpose of the equipment is to examine irradiance, illuminance, and longwave radiation presences around existing test facilities. Six goals determined the choice of equipment: to develop a better model for transforming global irradiance measured on horizontal surfaces to vertical surfaces; to create an illuminance database; to examine patterns of sky luminance and compare measurement data with generalized conventions; to generate a correlation between hourly values of irradiance and illuminance; to establish design condition illuminance values for use by architects and engineers; and to establish data about the longwave radiant exchange between buildings and the environment, with special attention directed to determining patterns and rates of nocturnal radiation exchange.